Program for Attracting and Retaining Scholars in Computer and Mathematical Sciences

This proposal furthers the same goals as the current program by starting another cohort in the CSEMS scholarship program by offering up to ten $3125 scholarships annually up to four years starting in the 2004-2005 academic year. The new program is similar to the current program with improvements and changes based on experience with the current program. Applicants are recruited with assistance from the admissions office and high school counselors with targeted recruiting in local high schools. Faculties in their respective departments recruit upper level candidates. The selection criteria of scholars are based on financial need and typical measures of academic potential like SAT scores and GPA. In addition, applicants submit letters of recommendation, a short essay describing career goals, and participate in a personal interview on campus. Once a part of the program, CSEMS scholars are given opportunities to participate in activities and support services designed to help them succeed like student organizations, study groups, departmental receptions, faculty mentoring, and tutoring services. During their university career, CSEMS scholars are encouraged to participate in cooperative education or internship opportunities. Finally, through the Computer Science Industry Advisory Board and Appalachian State University's Career Development Center, scholars are positioned to take advantage of a variety of employment opportunities in the high technology workforce.